Current problems in nonlinear dynamics: Macroscopic modeling of microscopic interactions and instability of coherent structures

Abstract: DMS-0405551 J Lega, University of Arizona

Current problems in nonlinear dynamics: Macroscopic modeling of microscopic interactions and instability of coherent structures

A current challenge in the modeling of many complex systems is to
develop comprehensive descriptions that cover all levels of
interactions, from the microscopic to the macroscopic. The first
topic of the proposed research falls into this category, with the
additional complexity of dealing with a system made of living
organisms. The PI and a collaborator have recently developed a
hydrodynamic model describing the dynamics and growth of bacterial
colonies at a macroscopic level. The PI will now investigate the
microscopic dynamics of interacting bacteria. Numerical
simulations of "live" interacting particles will be developed, on
which coarse-graining will be applied to obtain a description at
the macroscopic level. The search will be for a set of collision
rules that can reproduce and explain the collective behaviors that
have recently been observed in dense colonies of bacteria. This
study will also lay the ground for the future development of
kinetic models of collections of living organisms. The second
topic of the proposed research concerns the stability of coherent
structures. The kink-anti-kink profile of a bacterial colony, the
local deformations of an elastic filament, or the ultra-short
pulses propagating in an optical fiber, are all examples of
coherent structures. Such objects are often described as special
solutions of one or more model partial differential equations, and
modern analytical techniques have been developed to address the
question of their stability. The PI will combine such techniques
with numerical calculations and asymptotic expansions, in order to
obtain stability and instability results for coherent structures
observed in nonlinear optics and in reaction-diffusion equations
with nonlinear diffusion. The tools and methods that will be
developed in such a study are general enough to be applied to
other evolutionary partial differential equations.

Mathematical modeling is nowadays playing an important and growing
role in the life and physical sciences. In particular, models that
are based on our vision of how various building blocks of a
complex system interact with one another, and which translate this
vision into mathematical terms, can be used to test our theories
and make sure our understanding is built on solid ground. The main
challenge we face with such an approach is that our intuition
often feels more at ease at the microscopic - or the building
block - level, even though we live in a macroscopic world. All of
the difficulty lies in bridging the gap between these two worlds.
The first part of this work deals with such a problem: the goal is
to understand how microscopic interactions between bacteria may
lead to collective, macroscopic behaviors, as observed in some
experiments. Such phenomena will be modeled in the case of
laboratory grown colonies of bacteria, but similar principles
could be applied to the formation and dynamics of biofilms, which
have many engineering and medical applications. The second part of
the work concerns general methods for the analysis of mathematical
models which involve nonlinear partial differential equations. In
particular, the stability of solutions of some models relevant to
nonlinear optics and population dynamics will be investigated.